The NDSU Collaborative for Mathematics and Science Teacher Preparation (NDSU - CoMSTeP)

The NDSU Collaborative for Mathematics and Science Teacher Preparation (NDSU-CoMSTeP) is a three-year, single-institution, CETP Track I project designed to increase the number of middle and senior high school science and mathematics teachers prepared in North Dakota. The undergraduate students at North Dakota State University (NDSU) and Turtle Mountain Community College (TMCC) are the target recruitment populations. The project goals are to: (1) at least double the number of science and mathematics teachers prepared by the two institutions, (2) significantly increase the number of Native American science and mathematics teachers, and (3) develop a model for increasing the number and cultural diversity of secondary science and mathematics teachers prepared in rural regions. The project involves three interventions: (1) proactive recruitment of students from first and second year university /college science and mathematics courses and high school seniors into teaching career tracks, (2) undergraduate student involvement in science/mathematics teaching interest groups designed to support and enrich the students' desires to enter teaching, and (3) the reform of teaching in undergraduate science and mathematics courses in order to improve the quality of learning for all, but particularly for those students in the science and mathematics teacher preparation programs.